Collaborative Research: Mathematics and Climate Change Research Network

Jones, DMS-0940363
Camp, DMS-0940267
Danforth, DMS-0940271
Fung, DMS-0940272
Golden, DMS-0940249
Holland, DMS-0940241
Kostelich, DMS-0940314
McGehee, DMS-0940366
Pierrehumbert, DMS-0940261
Silber, DMS-0940262
Tung, DMS-0940342
Zeeman, DMS-0940243

The investigators form a "Mathematics and Climate Research
Network." This is a framework for an intensive effort aimed at
bringing to bear the full power of modern applied mathematics and
statistics on the prediction and understanding of the Earth's
climate. The investigators focus on three key themes: (1)
Dynamics of Climate, (2) Climate Process Modeling, and (3) Data
Analysis and Data Assimilation. Dynamics of Climate addresses
critical climate processes and their interactions. Climate
Process Modeling undertakes the modeling of climate components
that have been underrepresented in extant climate models, such as
the multi-scale material structure of sea ice. Data Analysis and
Data Assimilation develops mathematical tools for analyzing
climate data and assimilating them in current climate models.
The Research Network aims to be a national resource, with
participants at thirteen U.S. universities. The investigators
work together as a virtual community that holds regular weekly
"webinars" and working meetings over the Internet. This
multi-year effort is expected to help in defining a research area
of "climate mathematics" and in educating a new generation of
mathematical researchers to meet the scientific challenges
associated with a changing climate.

This project is driven by the need to better understand the
Earth's climate system. Climate is the result of many
geophysical and chemical processes in the Earth's atmosphere,
oceans and biosphere. These processes evolve in time over many
scales, ranging from minutes to centuries, and interact in
multiple ways, most often nonlinearly. Feedback mechanisms, many
of which are poorly understood, further complicate the picture.
Because there is only one Earth, climate cannot be studied by
systematic experimentation; the only approach available to
climate researchers is through computational experiments. These
experiments are based on mathematical models, which must be
simple enough not to exceed the capabilities of today's advanced
computer architectures, while still incorporating the physical
and chemical processes that are essential for realistic climate
outcomes. The expertise of mathematical scientists in designing,
assessing and interpreting these models is critical. This
"Mathematics and Climate Research Network" helps engage the
mathematical sciences community to address the mathematical and
statistical issues of our changing climate. The Research Network
takes full advantage of current information technology;
communication and collaboration among the participants takes
place mostly remotely over the Internet.